A Systematic Study of the Electrical Properties of Grain Boundaries Formed by Wafer Bonding

9616784 Clarke A systematic study of the electrical characteristics of grain boundaries in both a covalent semiconductor (silicon) and an ionic semiconductor (zinc oxide) is proposed in order to establish relationships between grain boundary crystallography, dopant concentration and electronic states, intrinsic and extrinsic. Such basic relationships are lacking in large part because of the difficulty in preparing large, flat areas of grain boundary of controlled misorientation that can be characterized both electrically and structurally. To overcome this limitation, as well as to control the concentration and type of grain boundary doping, it is proposed to use the rapidly developing technology of "wafer bonding" to prepare well-defined grain boundaries. Amongst the specific objectives of the proposed research are: the functional dependence of the number and energy of defect states with angular misorientation for twist boundaries in silicon; the demonstration that ZnO epitaxial films can be wafer bonded to form grain boundaries, and the subsequent extension to identifying the defect states produced by individual and combined dopants of ZnO grain boundaries as a function of crystallographic misorientation; and the development of a simulation scheme for describing the electrical characteristics of polycrystalline semiconductors in terms of the grain boundary defect states. %%% The proposed research will study the electrical properties of grain boundaries in polycrystalline semiconductors of importance in advanced electronic systems, such as zinc oxide-based varistor ceramics (used in electrical surge protection systems) and solar cells made from polycrystalline silicon. Understanding these properties will enable materials scientists to design improved materials that meet the requirements of tomorrow's high performance applications. %%%